Programmable Code Optimization and Empirical Tuning For High-end Computing

The complexity of modern high-end computers has made it exceedingly
difficult for scientific applications to effectively manage resources
such as extreme-scale parallelism, single-chip multi-processors,
and deep hierarchy of shared/distributed caches and memories. In
particular, as machines and applications have both evolved to become
complex and massively parallel, compilers have failed to automatically
bridge the gap between complex software and diverse hardware platforms.
Optimization models for parallel computing have lagged far behind
those for serial applications, and conventional compilers are
increasingly unable to accommodate emerging high-end architectures.

This research develops a new optimization model that allows
1) developers to effectively interact with advanced optimizing
compilers to provide both domain-specific knowledge and high-level
optimization strategies (e.g., directions to enable new or choose
amongst differing parallelization strategies); 2) computational
specialists to easily define arbitrary domain-specific transformations
to directly control performance optimizations to their code;
3) architecture-sensitive optimizations to be easily parameterized
and empirically tuned to achieve portable high performance.
The optimization model is supported with an integrated environment
that contains two main components: ROSE, a C/C++/Fortran2003
source-to-source optimizing compiler developed at DOE/LLNL; and POET,
a transformation language together with an empirical optimization
engine developed at UTSA. This framework permits different levels
of automation and programmer intervention, from fully-automated tuning
to semi-automated development to fully programmable control. The research
targets both the optimization needs of computational kernels and the more
general requirements of whole program optimizations. The framework is
integrated as an external development mechanism for the widely-adopted
ATLAS library and is connected with empirical tuning research under
DOE SciDAC program to improve the efficiency of large-scale scientific
applications.